CAREER: Phase Space Warping and Stochastic Interrogation: A New Paradigm for Damage Diagnosis and Prognosis

This CAREER educational and research project seeks to study the dynamical and stochastic theories for damage evolution in phase space and to develop prognostic capability for machinery and structural health monitoring systems. The main goal of the research is to develop methods capable of tracking simultaneously occurring multiple damage processes and accurately predicting imminent failures in variable forcing conditions. Applications to complex systems including composite structures will be investigated.

The proposed educational activities include the introduction of M&SHM related science & technology content into the curriculum. Collaborative effort to outreach with on-going programs at the Rhode Island University will be carried out.